Failure Probabilities for Risk-Based Maintenance and Parameter Estimation of Synchronous Machines

Electric power generation depends largely on the operation of large synchronous machines. These generators represent a costly investment for electric utilities, thus it is of utmost importance that any anomaly in their operation is promptly corrected. On-line estimation of generator parameters is a desirable feature that could aid in better monitoring of the machine behavior. It could have a significant impact in establishing an adequate maintenance schedule for the generator that ensures proper operation while taking into consideration cost and risk. The study will augment the research agenda of the multi-university Industry/University Cooperative Research Center for Power Systems Engineering.